Peer Instruction: Stimulating Renewed Interest in Physics and Other Science and Engineering Courses

We are further developing and disseminating a remarkably simple and effective instructional technique -- ConcepTests coupled with Peer Instruction -- which has shown to be very effective in revitalizing instruction and improving student learning in science courses. The technique has two primary goals: 1. to expose students' common misconceptions about fundamental principles via the use of ConcepTests, and 2. to rectify these notions, and promote understanding of basic concepts, through Peer Instruction. Greater understanding, in turn, leads to a greater appreciation of the material, and is ultimately expected to result in an increased interest in the sciences. Initial application of this method in introductory physics classes indicates that our program achieves both of these objectives. We are extending our initial research to other disciplines, fine-tuning our procedure, and systematizing its application so it can be widely applied in undergraduate science, mathematics and engineering education.